Combinatorial Model for Geometry and Analysis Based on the Algebraic Topology of Closed Curves

Proposal: DMS-9975527

Principal Investigator: Dennis Sullivan

ABSTRACT: This project concerns the construction of a combinatorial model of geometry to be used in theoretical studies where differential forms and tensors appear inadequate or in practical work, where scientific computation is required. We have discovered an operator "delta" in the cell structure of the space of closed curves in a manifold (string space), which records how finite collections of strings interact with themselves and with each other. This operator induces a Lie bialgebra structure on the homology of the space of the locally embedded strings. After developing the abstract theory behind these string interactions, we will build an explicit combinatorial model using any cell decomposition of the manifold.

The concrete model will be designed to implement nonlinear computations that arise in the motion of fluids, gases, or plasmas. The motion of these media is closely related to the way curves in space twist and curl under the influence of physical forces. Also, the interactions of the basic structure "delta" alluded to above, can be readily seen in such phenomena as the recoupling of vertex trails behind the wing tips of airplanes. We have some optimism that some of our goals can be realized because the mathematical structure of closed curves seems very well adapted geometrically to many of the problems we care about on the one hand, and on the other hand once revealed this structure seems to flow forth rather willingly and with some pageantry and richness.